PostDoctoral Research Fellowship

This award is made as part of the FY 2023 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Eric M. Jovinelly is “Rational Curves in Birational Geometry: Geometric Manin’s Conjecture and the Mori Dream Space Conjecture” The host institution for the fellowship is University of Illinois Chicago and the sponsoring scientist is Izzet Coskun.